DASI Track 1: Student-Led Development of an Advanced yet Low-cost Multi-Constellation, Triple Frequency Ionospheric Scintillation and Electron Content Monitor

This project will support the development of advanced yet low-cost monitors to measure changes in the upper atmosphere, using signals transmitted by multiple constellations of global navigation satellite systems (GNSS). GNSS, such as the U.S. Global Positioning System, are satellite constellations that provide positioning, navigation, and timing services on a global or regional basis. They play an ever-increasing role in the modern economy and at the same time have scientific applications in remote sensing of the upper atmosphere. This is because disturbances in the upper atmosphere, which cause rapid variations in GNSS signals, can be detected and imaged by ground-based GNSS receiver networks. A better understanding of these disturbances can in turn improve the accuracy and reliability of GPS signals, leading to greater efficiency in their operations.

This project will create an ionospheric scintillation and total electron content monitor with several capabilities of relevance to geospace studies that require observations by a distributed array of small instruments. New monitors will improve imaging capabilities when arrayed in dense networks, which will help to advance understanding of upper atmosphere variabilities associated with events occurring on the Earth’s surface and at lower atmospheric altitudes, including those related to volcanic eruptions, thunderstorms, tornadoes, and tsunamis. The effort will be also centered around education and training of the workforce in the fields of science, technology, engineering, and mathematics with emphasis on development and deployment of instrumentation. Additionally, the effort will create engaging and interactive exhibits that will increase public engagement in geospace science and instrumentation.